GEM: Study of Magnetic Storms and Their Relation to Substorms

The Earth's ring current is the primary driver of the large magnetic perturbations that accompany a magnetic storm. The magnetic index Dst is used to measure the intensity of the ring current. It is known that magnetic substorms inject particles into the ring current system and it is usually assumed that the same process is involved with the major magnetic storms. Recent work has suggested, however, that the growth and decay of the ring current during magnetic storms may be a directly driven phenomenon controlled by the solar wind. This study will use hourly Dst measurements and their correlation to the solar wind electric field to investigate how much of the ring current is directly driven by the solar wind. A database of Dst measurements covering more than 4 solar cycles (44 years) will be used to establish statistical correlations between Dst and the solar wind electric field. In addition, specific events will be studied in detail by using a modeling procedure which will correct for the effects of variable dynamic pressure at the magnetopause, the existence of a substorm current wedge and a partial ring current